A Model Mathematics Inservice Program for Middle School Teachers

This five week summer program, based in New York City, will assist twenty-four master middle school teachers: upgrade their mathematical knowledge, teaching techniques, and prepare/conduct workshops for co- teachers of grades 5 - 8. All teachers will be from New York City schools, where at least 80% of the their students are living at or below poverty level. The purpose of the workshops, run by the master teachers, is to assist the participating teachers better prepare their students to receive mathematical instruction and increase the students' rate of retention in mathematics courses. The mathematical topics will include algebra, geometry, graphing, computers, probability, and statistics. In addition, the City College of New York will finance the development and pilot testing of an instructional in-service videotape for middle school mathematics teachers. The intent is that teachers can view the tape as often as they want at their own convenience. The project director is Gerald Elgarten, City College of the City University of New York. Claire Newman, Professor Emeritus, Queens College of the City University of New York, a well-known mathematics educator and Michael Engber of the Department of Mathematics, City College will conduct the two courses for four weeks and the one week workshop. An Advisory Committee composed of superintendents and principals from the NYC public schools and the City College administration will meet several times prior to and once a month during the project to provide policy advice, monitor and evaluate progress. A continuing evaluation process will assess the project's impact on the teachers and their students.